Physical Properties of Core and Deep Mantle Constituents

Brown
0106683

Seismic studies of Earth's solid inner core indicate that the inner core
is elastically anisotropic and inhomogeneous, and that the apparent axis
of inner core anisotropy may rotate differentially from Earth's mantle. In
order to fully interpret these data, information is needed on shear wave
propagation through dense, high-pressure metals, particularly iron. For
most candidate lower mantle constituents the bulk moduli, as functions of
pressure, are reasonably well constrained by experiment; less, however, is
known about the behavior of the shear modulus. Efforts to understand both
radial and lateral variation of seismic velocities in the lower mantle are
limited by the remaining uncertainty in the pressure and temperature
dependence of the shear elastic constants.

Using the technique of Impulsive Stimulated Scattering, interfacial waves
can be generated between the suface of an opaque sample in the
high-pressure diamond-anvil cell and the surrounding pressure medium. The
velocities of these waves, which are particularly sensitive to the shear
elastic constants, are then determined. Specific goals
include: (1) determination of full tensorial elastic and thermal
properties of iron, iron alloys, and other metals at high pressures and
(2) determination of isotropic elastic shear moduli at very high pressure
of synthesized, polycrystalline, lower mantle phases.